STS/EVS Professional Development Fellowships for Study in the Neurosciences

9224015 Cozzens The growth of the neurosciences is one of the major developments in biology in the post-war period. This professional development fellowship will enable a social scientist who has been studying these developments to gain training and experience in the neurosciences and coordinate that training with study of the historical evolution and institutionalization of neuroscience. She will use this background to complete research on the connections between the development and directions of this scientific field and its consequences for various social groups. The award provides for tutorials, coursework, and laboratory work under the guidance of the neuroscience faculty at the Johns Hopkins University. It also allows the awardee to interview a number of the past presidents of the Society for Neuroscience. At the conclusion of this period, she intends to have a detailed chapter outline for a monograph on autonomy and power in the neurosciences. ***